Non-Determinism in Deductive Databases

The objective of this project is to develop a unified framework for modeling, expressing and efficiently supporting semantic concepts and constraints required for building the next generation of intelligent information systems. The proposed unification will include non-determinism in deductive rules and active rules for databases, non monotonic logic and common-sense reasoning. The project goals will achieved through the collaborative of leading research teams who are currently active in these areas in the U.S. and Europe. Dissemination of the research results will be through scholarly publications and a major international workshop organized in the second year of the project. Specific research tasks will address.